Acqusition of an X-ray Diffractometer with CCD Capability

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at San Diego State University will acquire an X-ray diffractometer with CCD detector. This equipment will enhance research in a number of areas including the following: a) inorganic site directed mutagenesis; b) ketene-carbene chemistry and applications; c) biologically inspired organometallic chemistry - proton transfer and hydrogen bonding; and d) water-soluble N-donor ligands and corresponding complexes.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules. These studies will have an impact in a number of areas, especially biochemistry.